Dissertation Research: Ethnic Boundary Maintainance in Mauritius

This project involves the dissertation research of an anthropology student from UCLA. The project will explore how culturally specific rules and criteria influence the choice of spouses in Mauritius to maintain ethnic boundaries through endogamy. Through interviews and census data, marriage patterns in Mauritius will be determined, including rates of intermarriage between Creoles, Afro-Mauritians, Indians (Muslims and Hindus) and other ethnic groups. The researcher will create a decision-tree model of mate choice to assess the nature of the decisions and values people use to maintain ethnic group boundaries. This research is important because it increases the expertise available about t his area of the world, and advances our understanding of the nature of ethnic group boundary maintenance. In the current `post-modern` era the importance of the nation-state with respect to ethnic groups is waning, thus research on the nature of ethnic boundaries is increasingly valuable.